Combinatorics with Applications

COMBINATORICS WITH APPLICATIONS

Jerrold R. Griggs and Laszlo A. Szekely

The proposers seek results in extremal combinatorics that exhibit structures which are key to applications, or which provide bounds on what can be achieved by any algorithm. The proposers will search for a profitable crossover of ideas and methods, including applications of algebraic and analytic tools. The particular problems include
* improving current bounds on the maximum concentration of subset sums of
vectors, especially for problems arising from models of database security
* finding better algorithms for graph drawing, developing the theory
of crossing numbers of graphs, and working out further applications of
of the theory to geometric problems
* developing robust algorithms for reconstructing very large phylogenetic
trees, and analyzing conditions necessary for reconstruction, with
attention to models where the i.i.d. property fails
* completing the solution of maximum non-spanning sets in
finite abelian groups
* advancing the study of algorithms for large independent sets
in graphs of given maximum degree and clique size
* classifying graph subdivision problems which admit small threshold function
* leading the development of the theory of graph labellings spawned by the
problem of optimal channel assignments with multiple levels of interference

Research in combinatorics and graph theory is proposed in a wide variety of areas, including those that arise in such rapidly developing fields as computer science, computational biology, and number theory. Problems arise at the very core of our understanding of how discrete structures work and how to use them optimally. Among the questions they will study are these:
* How can one optimize public access to a statistical database
(containing, say, salaries of a department's employees) by maximizing the
number of queries, each one asking for the average salary of some
collection of the employees, that can be answered without compromising
the salary of any individual?
* Given corresponding aligned segments of the DNA sequences of many
biological taxa (or species), how does one build large phylogenetic trees
reflecting their true evolutionary relationship?
* How can one draw a very large network such that the viewer can grasp it
from a clear drawing?
* How can the frequency spectrum span alloted to a network of transmitters
(radio stations, mobile phones, etc.) be minimized, such that channels
assigned to nearby transmitters must avoid interference?
* What is an efficient method to select a large number of transmitters,
no two close together, given a network and information bounding the
complexity of the network? Fundamental problems of this kind arise in
many settings.
Involvement of graduate students in research on these problems will enable
the investigators to continue their successful training program for careers
in industry, government, and academia.